International Conference in Geometry and Dynamical Systems, January 2003 - Cuernavaca, Mexico

This award supports U.S. participation in a conference to be held
in January 2003 in Cuernavaca, Mexico. The conference, titled
"Complex Geometry and Dynamics," is being organized in honor of
Alberto Verjovsky of the Universidad Nacional Autonoma de Mexico
and will range widely over the fields of dynamics and geometry.

The award will fund conference travel expenses of 25 junior
U.S. participants and several speakers. A special feature of the
conference that will particularly serve the junior participants
is a set of short courses offered by M. Brunella, E. Ghys, and
Y. Eliashberg.